Simple Electronic Models of Fullerenes

9311949 Murthy A theoretical research program will be conducted to understand the low-energy electronic properties of doped fullerenes. The renormalization group method augmented by exact solutions for small systems will be the primary theoretical technique used. Specifically, the following topics will be addressed: exactly solve small fullerene analogs by the Lanczos method; carry out a momentum shell renormalization group on the fullerene molecule and obtain effective interactions at the Fermi surface; use the renormalization group to identify important correlations on a fullerene molecule and construct a variational wave function leading to an understanding of the physical mechanism of pairing; include the relevant intrafullerene phonons in the renormalization group; use the renormalization group for the full crystal to generate the appropriate superconducting mean-field theory. %%% This theoretical study will attempt to understand the properties of the new fullerene molecule. In particular, the thrust of the work will be on applying new techniques developed for the study of phase transitions in order to understand the superconducting properties of these new materials. If successful, the techniques developed will have wide application in addition to contributing to the understanding of superconductivity in the fullerenes. ***